Improving Geographic Information System Lab Capabilities at an Interdisciplinary University

9451887 Niedzwiedz The Geography and Public & Environmental Affairs programs at the University of Wisconsin-Green Bay are seeking funds to incorporate state-of-the-art methods of Geographic Information Systems into our undergraduate GIS Lab curriculum. Given student demand for GIS courses and the evolution of GIS technology, our GIS Lab is seriously deficient in equipment and software. The improvements proposed incorporate results of the NSF supported National Center of Geographic Information and Analysis (NCGIA) study of core curriculum requirements for GIS. The improvements will provide our students with strong hands-on training in raster and UNIX vector GIS systems, GIS concepts, geocoding, data structures and editing, the building of topology, analytical modeling, GIS applications and cartographic presentation. The requested equipment will allow major improvements in the Geographic/Land Information Systems course and allow immediate development of three new GIS courses: Advanced Methods in GIS, Environmental Applications of GIS (an innovative team-oriented course), and GIS Applications in Business (tentative title). Four additional courses also will experience significant improvement. With the new equipment, image processing and several levels of networking are made possible. Additionally, the proposed improvements will allow implementation of a local GIS Adopt-A- School Program. This innovative program is designed to enrich education within environmental science, earth science, and geography curricula. The improvements will ensure that students receive up-to-date training in the technology and methods that are becoming important tools for the stewards of our natural, social and economic systems.